Travel Support of U.S. Scientists to Attend the NATO Advanced Research Workshop, "Coherence in Superconducting Networks", Delft, The Netherlands

This grant will enable qualified U.S. scientists to attend the NATO Research Workshop entitled, "Coherence in Superconducting Networks," to be held in Delft, The Netherlands, 14-17 December, 1987.